Gender Differences in Behavior and Achievement: A True Experiment Involving Random Assignment to Single Sex and Coeducational Advanced Placement (BC) Calculus Classes

Standardized test results indicate gender differences in mathematics achievement on the secondary level, with boys consistently outperforming their female peers. This study will focus on the talented mathematics student, enrolled in Advanced Placement BC Calculus. Its objective will be to examine, by way of a true experiment, gender differences in classroom interaction patterns, student perceptions of themselves as learners of mathematics, and achievement in advanced high school mathematics. The uniqueness and import of the project lies in the random assignment of subjects to single-sex and coeducational classes following identical curriculum strategies and plans. From the investigation of differential effects of classroom social environments on adolescent males and females will come further elucidation of the aids and obstacles to successful mathematics learning. As a final outcome of the study, those insights will be translated into practical proposals for general use with students in advanced mathematics courses on the secondary level.